Collaborative Theoretical and Experimental Study of Nonadiabatic Dynamics

In this award, supported by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. Millard Alexander of the University of Maryland and Prof. Paul Dagdigian of Johns Hopkins University will conduct a joint theoretical and experimental research program to study the effects of nonadiabatic dynamics in molecular processes: reactions, photodissociation and inelastic collisions. Knowledge gained from this research has important implications in a variety of fields from combustion chemistry to atmospheric science.

Besides the broader scientific impact of the research, the computer code (e.g. Hibridon) developed in the theoretical portions of this research will continue to be disseminated, and graduate students will receive training in experimental and theoretical physical chemistry research.